Chemical and Photochemical Factors Controlling the Photoefficiency of Photopromoted Solid-Catalyzed Oxidative Decomposition of Organic Vapors

This study attempts to capitalize on the recent observation that very high photoefficiencies can be obtained for the semiconductor-catalyzed oxidative mineralization of trichloroethylene in the gas phase. A systematic study of the dependence of the photoefficiency on vapor composition, nature and deployment of photocatalyst, wavelength and intensity of radiation, and temperature is conducted in bench-top fixed-bed reactors; the goal is to optimize the photoefficiency and obtain information on the chemistry of the system. The study will also be expanded to other compounds, including chloroform, methyl chloroform, perchlorethylene, isooctane, and toluene. The phenomenon has great potential as the basis of a cost- effective technology, suitable for retrofit, for destroying volatile organic pollutants in systems for air or steam stripping of polluted water or soil, ventilation of industrial or transportation systems, and such highly polluting operations as painting and printing.